Microstructural Basis of Interfacial Rheology

Abstract
CTS-0085114
G. Fuller, Stanford University

The PI will execute work at the leading edge of microrheological measurements. His past studies have led to the development of a novel measurement instrument which has been adopted by other laboratories. It is expected that a similar benefit may derive from this investigation.

His work will examine the rheological properties of the thin gelatin layer between an air/water and an oil/water interface. He will also examine the rheological properties of a nematic monolayer. The support letter from the Kodak Company emphasizes the major contribution which this work will provide to the photographic, food, paper and pharmaceutical industries.